Presidential Award for Excellence in Science, Mathematics and Engineering Mentoring

HRD 03-28671
Dr. Linda Hayden is a tenured professor of computer science with 30 years of college experience in teaching and nurturing student researchers. Dr. Hayden joined the faculty of Elizabeth City University in 1980 believes that the teaching and learning experience is significantly enhanced by student participation in a well-designed undergraduate research training program.

Dr. Hayden's technical contributions as an educator have been widely accepted and acknowledged by her peers in the profession. The community has benefited from her the extensive array of science programs that she has developed, including Nurturing ECSU Research Talent (NERT), several efforts funded by NASA, and the Celebration of Women in Mathematics program. She works diligently with undergraduate students, middle and high school girls, and K-12 teachers. Her work extends well beyond her home institution to reach a number of HBCUs around the country. Through her exemplary practices it is clear the she is committed to increasing the number of minorities in scientific and technical careers.